Fiber Optic Communication Undersea - Phase II

The University of Hawaii, Institute of Geophysics will continue development, construction and testing of FOCUS (Fiber-Optic Communication Undersea System). FOCUS is designed to be a relatively small, lightweight, fiber-optically tethered real-time video camera system offering maneuverability and deep sea capabilities at a low unit cost. It will provide ocean scientists with high resolution, real-time digital color video in depths to 6,000 meters. Its size, weight, and modular construction will make FOCUS usable from ships of opportunity, and those without a complex over-the-side support system. The key to FOCUS' relatively small size is a new electro-optic cable. The phase 2 effort will consist of deep water field testing and addition of a passive, low-cost 'eyeball' that will hang below the main FOCUS frame. The University is providing sharing. A variety of geological and geophysical studies of the seafloor can make use of cost-effective capabilities provided by a vehicle such as FOCUS.